Variational Problems Associated with Models for Both Orthodox and Unorthodox Materials

0072816
Mizel

The goal of the part of the present proposal involving unorthodox
materials is to develop an understanding of step structure and step motion
in the limit of small step free energy for crystals with surface defects
consisting of monatomic height steps separated by terraces. Such defects
are fundamental structures since steps--as sinks and sources for atoms--
influence mass transport at surfaces and therefore influence fundamental
multidimensional surface processes such as nucleation and growth, facet
formation and thermal roughening in crystals and their applications.
Consequently these defects have been studied since the 1950's and fairly
successful macroscopic models to describe behavior in most materials
have been developed. These models express the energy of an isothermally
wandering step as the integral of the (generally orientation dependent) step
energy per unit length. However in the limit of vanishing step free energy,
new physics [e.g. higher-order elastic interactions and step-to-step
interactions] enters the picture. These higher-order effects can lead to the
spontaneous development of highly periodic step structures. Such novel
step morphologies are members of an increasingly important class of self-
organizing systems: systems that spontaneously form atomic scale
periodic patterns. A recent (1997) pathbreaking experiment on Boron-
doped Silicon in which the isothermal wanderings in question, contrary to
the simple models cited, are periodic and increase with a decrease of the
steady state temperature in an interval presents a significant challenge to
the development of appropriate macroscopic models for this branch of
crystal theory. It reveals that there is a major gap in the current technical
understanding of defects in crystals of this nature, since detailed analysis
of the dynamics of these fluctuating step edges is incompatible with
current theories of step energetics. Resolving this issue is important for
near term attainment of non-routine applications involving crystals with
small step free energy, since it has direct impact on understanding the
atomic-scale structures they develop. In turn, this understanding is needed
for the development of materials with uniformly closely spaced and nearly
congruent self-organized [quantum dot] defects--such self-organizing
materials being crucial to the development of monochromatic lasers and
quantum wires, for example, as device scales shrink. The goal of that part
of the present proposal involving orthodox materials is focussed on
clarifying an as yet unresolved issue in the theory of nonlinearly elastic
materials. Equilibria for such materials subjected to specified boundary
displacements correspond to deformations which minimize a stored energy
integral whose integrand associates to each deformation a nonnegative real
valued function. Such stored energy integrands are subject to various
constraints in order to correctly represent possible physical materials. In
the last decade a previously unnoticed issue has been raised. Namely in
view of a little known one-dimensional variational phenomenon
(originally established in 1926) that for certain variational integrands the
minimizing functions can differ depending on the smoothness of the class
of deformations under consideration -- even though the smoother class of
functions is dense in the larger class. In fact there can be a nonzero
difference between the infima of the integrals associated with such classes
[Lavrentiev's gap phenomenon]. A corresponding gap between classes of
continuous deformations in three dimensional nonlinear elasticity would
imply that the global equilibrium deformation in the larger class would be
energy minimizing and more singular than the energy minimizing global
deformation in the smaller class--whereby structures devised on the basis
of the less singular deformations could develop flaws [fractures], contrary
to the evidence provided by calculations based on standard methods.

To summarize, the PI proposes in the case of the unorthodox type of
crystalline material exemplified by Boron doped Silicon to devise
variational models that will shed light on the entirely nonstandard physical
behavior of such materials. Such models will involve devising what are
known as Landau-de Gennes type order parameter terms for the free
energy of such materials to reflect the particularly delicate atomic
interactions governing the nanatomic structure of such crystals. On the
other hand, in the case of orthodox materials the PI intends to clarify
whether in the well-established theory of nonlinear elasticity there can
occur materials which for certain classes of boundary conditions can
exhibit an energy gap between the minimum energy on one class of
continuous smooth deformations and the minimum energy on a smaller
class. The occurrence of such an energy gap could lead to cases in which
structures devised on the basis of computations associated with the smaller
class could develop flaws because the actual energy minimizing
deformation is more singular than the computations suggest.